Computer-directed Experiments for Freshman Chemistry Laboratories

Freshman chemistry students are being prepared for transfer to four year institutions and for careers in industry by doing laboratory experiments using computer directed equipment. This is happening by upgrading Chemnet (Chemistry CAI) with more powerful computers and printers that have more capabilities and chemical applications for handling and manipulating data. The freshman students are learning to store data on text files, carry the text files to Chemnet, and transfer the files into Chemnet for data evaluation, printing and plotting. Students are also using a computer to control the variables of the experiment and the UV-Visible spectrophotometer and then transfer the data electronically with Chemnet. The students are also using the computers with other accessories to learn additional laboratory techniques. The grantee is matching the award from non-Federal funds.